Symplectic maps to P2, symplectic Lefschetz pencils and new symplectic invariants - a conference proposal

DMS-0105389
Ronald J. Stern

This award provides partial support for graduate students,
postdoctoral researchers, junior faculty, and principal speakers to
attend the "Symplectic Geometry and Lefschetz pencils" conference to
be held April 12-16, 2001 on the campus of the University of
California at Irvine. This conference will bring together researchers
to discuss and present new advances in the study of symplectic
Lefschetz theory and symplectic 4-manifolds . The discovery of
Donaldson that every symplectic 4-manifold supports a symplectic
Lefschetz pencil and the discovery of Auroux and Katzarkov that
every symplectic 4-manifold is a finite ramified covering of the
complex projective plane presents the possibility to classify
four-dimensional symplectic manifolds using mapping class group
data and methods from algebraic geometry. This conference will
provide an opportunity to summarize, centralize and disseminate
results in this new direction of mathematical research and will
provide the opportunity for new PHD's and graduate students in
algebraic and differential geometry/topology and theoretical physics
to learn from the leaders of this emerging field. Specific
information will be available at http://www.math.uci.edu/sub6.html